Resources for Science & Mathematics Literacy: Assessment

98-19018
NELSON

This three-year project builds on other "tools" developed by Project 2061, and is designed to support science and mathematics educators in aligning assessments with standards and benchmarks. The project will:

Develop criteria and an analysis procedure for judging alignment of assessment tasks to learning goals;
Produce case studies of using the criteria to revise existing tasks and create new ones; and
Make the tools available to educators in a useful form.

Dissemination will occur through the web, CD-ROM, and assessment workshops.

The evaluation will be conducted by the BEAR Center at Berkeley.